Santa Barbara Summer Conference in Geometry, July 21-24, 1999, Santa Barbara, California

Abstract

Award: DMS-9820748
Principal Investigator: Xianzhe Dai and Rugang Ye

This award provides partial support for the (first) Santa Barbara
Summer Conference in Geometry, to be held from July 21 to July
24, 1999 on the campus of University of California, Santa
Barbara. The purposes of this conference are threefold. First, to
bring together the leading experts in geometry, and especially in
the fields closely related to physics. Second, to survey the
recent remarkable progress spurred by physics, especially string
theory, and point to new directions and frontiers for young
researchers, graduate students and postdocs. Third, to further
stimulate the fruitful interactions between mathematics and
physics in coordination with the program "Geometry and Duality"
to be run right after this conference at the Institute for
Theoretical Physics, UCSB.

Currently, we are witnessing the blossoming of a golden age of
interactions between physics (in particular high energy physics)
and mathematics (in particular, differential geometry,
differential topology and algebraic geometry). On the one hand,
physicists, guided by physical intuitions and equipped with most
advanced mathematical tools, bring about new break-throughs which
pose new challenging problems and also provide new insights for
mathematics. On the other hand, mathematicians, inspired and
spurred by advances in physics, make amazing progresses in
mathematics, which in turn provide new machineries for
physicists. Mathematicians also make direct contributions to
physics in collaboration with physicists. The joint efforts of
physicists and mathematicians lead to major advances in our
understanding of the structures of the universe, and will
ultimately uncover major new energy sources and provide new
foundations for more powerful natural computations at higher and
deeper levels. The Santa Barbara Summer Conference in Geometry
is designed to make contributions in the framework of these
developments.